Houston Summer School on Dynamical Systems

The 2017 "Houston Summer School on Dynamical Systems" will take place May 17-25, 2017 at the University of Houston, in Houston, Texas. This event will introduce graduate students to recent progress and novel techniques in dynamical systems and ergodic theory. Particular emphasis will be paid to statistical properties of systems with some hyperbolicity, and on connections between dynamics and number theory.

The core of the school will consist of five lecture series covering topics in: hyperbolic and partially hyperbolic dynamics, symbolic dynamics, Diophantine approximation, dynamics of group actions on homogeneous spaces, and linearly recurrent systems. These lectures will be given by internationally recognized researchers in dynamical systems and its applications. In addition to the formal lectures there will be informal review sessions, problem sessions, and project sessions, with the goals of maximizing interactions between students and lecturers and allowing plenty of opportunity for discussion.

The summer school URL is: http://www.math.uh.edu/~climenha/2017-school.html